Travel to Gran Sasso to attend 11th Summer Institute at LNGS

This proposal requests travel funds to attend the 11th Summer Institute at the Gran Sasso Laboratory and give a series of lectures on aspects of string theory. local expenses will be covered by the Institute.